UJNR Panel on Wind and Seismic Effects Technical Coordinat- ing Committee on Precast Seismic Structural Systems (UJNR-PRESSS) - Initiation Proposal

This research project supports the initiation stage of the fourth phase of the UJNR Panel on Wind and Seismic Effects Coordinated Research Program, to be on the topic of precast seismic resistant structural systems. The initial stage of this project establishes an administrative structure, sets the aims and limits to the scope of the project, explores cooperative opportunities with the Japanese counterpart, solicits industry support, assembles a group of researchers to form the core of the research effort, and through collaborative effort on their part, prepares a detailed research plan for the fourth phase of the UJNR project. This will then be the program planning document used by NSF in the conduct of this international coordinated earthquake engineering research project.